U.S.-Turkey Cooperative Research on Dynamics in Polymeric Systems

9312285 Mattice Technical Narrative: This project represents a collaborative research effort between the University of Akron and Bogazici University, Istanbul, Turkey. The investigators intend to develop procedures for the simulation of polymers in three environments -- inclusion complexes, the amorphous polymer at bulk density, and diblock copolymer micelles. This research may prove valuable in gaining insight into the factors that influence the dynamics of flexible chains and their rate of entry exchange into and out of micelles. The problems to be addressed in this research are relevant to a wide range of practical problems in polymer processing and polymer structure-property relations. Project funding will enable the researchers to develop simulations on both campuses and to visit each other's laboratory over the course of this three-year study. This project in materials research fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Turkey to combine complementary talents and conduct research in areas of strong mutual interest and competence. ***